Collaborative Research: EAGER: Establishing immortalized cell lines from the European honey bee, Apis mellifera

This EAGER will advance the national prosperity and add to national bioeconomy by creating a new bee cell line that will help identify how bees succumb to microbial infections. Populations of bees and other pollinators are in decline worldwide, which has major implications for ecosystem health and agricultural production interests. Colony collapse disorder, involving colonies of the European honey bee, Apis mellifera, is just one dramatic example of rapid loss of pollinators. Although a large number of viruses infect bees, it is not known how these viruses impact bee decline. A bee cell line would benefit science because it would allow scientists to identify how bee viruses infect and kill bees. The goal of this research is to establish and characterize the first immortalized cell lines from Apis mellifera. The resulting immortalized cell line(s) will provide an invaluable resources for the virology research field. In addition to helping the honey bee scientific community, this research may help understand disease dynamics in other pollinator species, many of which are important for US agriculture. This cell line may be the basis for commercially-available testing kits to identify or track bee diseases. The research uses funding to train graduate and undergraduate students, including under-represented students. As such this funding is training the next generation of leaders in science. Researchers will share their findings to the public through the use of beekeeping workshops, and honey bee health and research awareness activities through farmer’s markets and video documentaries.

The lack of immortalized bee cell lines has greatly hampered research on bee viruses. Thus far, only primary cell cultures have been established from Apis mellifera, the European honey bee. These primary cell cultures are difficult to establish and maintain, and suffer from several major drawbacks including the presence of multiple resident viruses, extremely slow cell division rates, and limitations on the number of passages before reaching senescence. This research will examine the ability of candidate honey bee genes to immortalize A. mellifera embryonic cells. This will be accomplished by stably expressing candidate genes in primary embryonic cells isolated from embryos and monitoring growth and survival of the resulting cells. Primary cells isolated from different developmental stages of the embryo will be used, in order to attempt to obtain immortalized cell lines that represent various cell types. Cell clones with optimum growth characteristics that are able to be stably passaged will be selected. The resulting immortalized cell lines will be screened for resident viruses by deep sequencing, and any viruses present will be cleared by using a combination of RNA interference and single cell cloning. The resulting virus-free, immortalized honey bee cell lines will be made available to the research community. If successful, this approach will also provide a template for researchers to isolate immortalized cell lines from other bee species. This research was supported by the Symbiosis, Defense and Self-Recognition program of the National Science Foundation.